SBIR Phase II: Novel Water Flooding Technique to Enhance Oil Recovery

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) project is to deploy a revolutionary water-flood technology to increase oil recovery. The best current technology is limited to 30 - 50% recovery leaving significant resources in the ground. The available methods to further increase recovery are expensive, have limited application and can cause environmental damage. The proposed method is much less expensive and has minimal environmental impact. Our technique does not use chemicals or additives thus avoiding the risk of contaminating ground and surface water resources. Rather than drill thousands of new wells, our approach revitalizes old fields and requires little modification to the existing infrastructure and operational procedures. It would allow older fields to continue to operate, providing jobs and taxes while increasing and further diversifying our domestic oil reserves. Full success of enhanced oil recovery,could produce up to 21.7 billion barrels of additional oil generating over $1 trillion for the US oil industry over the next twenty-five years, thereby increasing the energy security of the U.S. and creating more jobs while stabilizing domestic oil production at much lower costs than other technologies.

This SBIR Phase II project proposes to validate the technology to optimize wettability in existing oil reservoirs through flotation experiments, computer modeling and field pilots. Once we have achieved good pH control during the flotation experiments, we will determine the impact on reservoir wettability, the effect of salinity on wettability and the equilibrium constants for the surface complexation computer model. Finally, we will conduct concept validation projects in field to verify a minimum of 5% OOIP increase in oil production. Thus, we will provide producers with a field-verified process operators can implement to yield significant results for little cost.